RUI: Dimuon and Associated Particle Production in Hadronic Collisions

9317895 Dauwe This award is for the renewal of an RUI grant covering two years to allow Professor Dauwe and two undergraduate assistants to participate in the analysis of the data from Fermilab experiment E672. The experiment is a fixed target investigation of the production mechanisms of charm by pions and protons from H, Be and Cu targets. The data taking phase was completed in 1991 and no further running is contemplated. In addition to the physics goals, the experience in high speed computing and the association with the multi-university team at Fermilab will enhance the education of the students in a way not normally available at an undergraduate institution. *** v s t , ; ' , $ $ ( F / , ; , / 1 Courier Symbol & Arial 5 Courier New " h e e o K R:\WW20USER\ABSTRACT.DOT Chestena Haskins Chestena Haskins